The Structure, Dynamics and Functions of Avian and Bovine Pancreatic Polypeptides in Solution by Nuclear Magnetic Resonance Spectroscopy

The Structure, Dynamics and Functions of Avian and Bovine Pancreatic Polypeptides in Solution by Nuclear Magnetic Resonance Spectroscopy: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their resesearch careers. This research project is concerned with the role of polypeptide hormones and how they mediate the metabolic activities of different cells in multicellular organisms. A key to understanding the biological properties of hormonal proteins, both in normal and abnormal metabolism, is their detailed molecular structure and dynamics. The general objective of the proposed research is to characterize the structure, dynamics and function of avian pancreatic polypeptide (APP) and bovine pancreatic polypeptide (BPP) in solution by modern nuclear magnetic resonance techniques (NMR) The project is under the direction of Dr. Michael J. Bogusky, Department of Chemistry, University of Pennsylvania, Philadelphia, PA 19104-6323, and Professor C. M. Dobson, Inorganic Chemistry Laboratory, University of Oxford, South Parks Road, Oxford OX1 3QR, England. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.